MSPA-MCS: Modeling, Analysis, and Learning Algorithms for Stochastic Scheduling in Clusters of Servers

The investigators and their colleagues study the problem of dynamic
resource management in large scale and reconfigurable clusters and develop
a novel stochastic framework for modeling, analysis, resource
allocation, and strategy adaptation of parallel applications.
The framework features three key innovations. First, it introduces the
methodology of sequential optimal stopping times into the field of parallel
processing for designing optimal scheduling strategies. It relies on a
workload evolution model that captures both dynamic load changes and
server capacity variations in a unified structure. Second, the framework
contains an aggregation method that utilizes cluster structures to reduce
computational complexities, based on treatment of two-time-scale Markovian
systems developed recently. Since the Markov decision processes for
remapping problems require control actions be stopping rules,
the proposed techniques constitute a new paradigm
of stopping rules in two-time-scale Markov systems and make
a broader impact on the theory of Markov decision
processes. Third, the framework includes a novel learning methodology that can
update scheduling strategies recursively to accommodate time-varying
uncertain environments in which statistical properties are not available
a priori. The methodology integrates projection and truncation
algorithms into the Q-learning procedures to enhance its implementation
efficiency, state bounding, and speed of convergence. This project
establishes asymptotic properties of the algorithms, which may shed new light
to the studies of Q-learning theory. In addition to convergence of the
algorithm under random truncations, rates of convergence are also
ascertained using an associate diffusion process.

An overwhelming majority of today's supercomputers are constructed
by aggregating a large number of processing nodes to overcome the
barrier of processor speed. Engineering such systems
presents key challenges, including coordination of the behaviors of the
processing nodes to achieve high sustainable performance in real applications
and reconfiguration of the systems in response to node/link failures
to provide fault-resilient services. Current practices often rely on
heuristic approaches to the issues and offer little insights into the
potential and limitation of large scale clusters. This study intertwines
today's discoveries of cluster computing principles with advances in
mathematical sciences. Not only does it develop new knowledge about enabling
technologies of next generation of high-end computers, but also
it advances mathematical models and theories in new applications.
Moreover, it motivates graduate and undergraduate students of diversified fields to participate
in interdisciplinary research in both computer and mathematical sciences.